2003 International Workshop on IT-Enabled Supply Chain Management and Logistics; December 14-16, 2003; Bangalore, India

Given the increasing importance of Information Technology in enabling leading
businesses and supply chains and the rapidly evolving structure of private sector and
public sector organizations driven by constant innovations in the field of IT, there are
tremendous scope and value for ground-breaking research in various aspects of IT-
enabled logistics and supply chain management. To bring together some of the finest
researchers in this area to present their perspectives, an international workshop is being
proposed in the IT capital of India, Bangalore, later this year. Thought leaders and
accomplished researchers from across the world will congregate to share their findings,
unearth path-breaking approaches to shared problems and discover common research
interests in the closely inter-related areas of supply chain management, IT enabled
logistics, E-business and manufacturing automation. This collective learning process will
definitely lead to significant new findings that shall further aid the development and
deployment of new IT solutions in Industry.
The workshop will be organized over a period of 2 days with a total of 8 sessions that
shall be dedicated to exploring the frontiers of IT-enabled logistics and supply chain
networks. A pre-workshop tutorial on the basics of IT-enabled logistics and supply chain
management will be organized for the benefit of interested workshop participants. A
total of 40 prominent speakers will be invited to present their results and share their
perspectives. The total number of participants including speakers will be around 150 (40
speakers, 40 faculty members from Indian Universities, 30 Industry participants and
about 40 research students). Some of the companies that are expected to participate in
this event are i2 Technologies, SAPLabs, Samsung, Motorola, Infosys, Satyam,
MindTree, IBM India Research Labs, and GM India Science Labs.
In order to achieve the ambitious goals of this workshop, the participation of international
experts particularly from the US is absolutely essential. In this regard, NSF funding to
provide partial support for the travel and accommodation of US-based researchers
attending the event will go a long way in making the event a grand success. It is
estimated that support will be required to facilitate the participation of around 10 US-
based academicians.
The intellectual merit of the proposed workshop is that it brings together leading
researchers and industrial thinkers for technical presentation, brainstorming discussions,
industrial visit, and workshop publication. The speakers will share some of their most
recent research findings to addresses both the IT and the modeling issues, and this will
have broad impact on both traditional industries such as automotive, aerospace, apparel,
petrochemicals, etc. and also e-business companies. The outcomes of the Workshop will
be widely disseminated to scientists and engineers in academia, manufacturing and
service industries, and the supporting IT industries through Workshop Proceedings and
personal contact. Visits to leading Indian software houses and research institutes and
technical discussions among participants would facilitate a better understanding of India
IT industry by US researchers, and the establishing an international research network will
then have a far and broad impact on international collaboration between the two
countries.